Computer for DNA Sequence Informatics

This proposal is a request for partial funding of a DNA sequencing and DNA informatics facility. The funds requested from NSF will be used to provide computers for this facility and for associated research in DNA informatics. Funds have already been obtained to purchase two automated sequencers. This facility is intended to become a nucleus for research and teaching of Genomic Sciences on the NCSU campus. Significance of the proposed activity to the advancement of knowledge and education: New advances in the automation of sequencing technology have created a new paradigm for research on organisms of long term scientific or commercial interest. In this new paradigm, DNA sequence is the primary basis for defining function of the expressed genes in a tissue, organ or entire organism. It is now necessary and feasible to obtain far larger amounts of sequence information to address a wide variety of important biological problems. These areas include: development and physiology of experimental organisms, the genetic engineering of agricultural plants and animals, and the fundamental issues of population biology, systematics and biodiversity that are needed to understand the mechanisms of biological adaptation and evolution. A major barrier to the application of this new paradigm in all areas of basic and applied biology is the lack of adequate computational and statistical tools for the analysis of DNA sequences. Methodology for DNA sequence information acquisition and analysis is important for our nation's intellectual resource base, our research capability, and for long term industrial development. Statement of Objectives: High throughput sequencing, and advanced computational analysis of sequence information are essential technologies for NCSU to advance our position as leaders in Biotechnology of Agriculture and Forestry. The purpose of this proposal is to create a facility for DNA sequencing and sequence analysis through the cooperation of the College of Agriculture and Life Sciences, the College of Veterinary Medicine, College of Physical & Mathematical Science, and the College of Forest Resources. This facility will provide "state of the art" DNA sequence and gene mapping, and computational technology at low cost to NCSU faculty and the larger research community. One project to be carried out at the facility is the "Pine Gene Discovery Project" that will identify all of the expressed genes of pine, a project of great importance for systematics and biodiversity and also for the wood products industry. In addition, the facility will serve an educational role by introducing automated sequencing and DNA informatics into the curriculum. Research and Academic Infrastructure: NCSU has a long standing reputation for excellence in statistical analysis of genetic information, population genetics, quantitative genetics, and plant molecular biology. In addition to the immediate need to fund computational capability for the DNA sequencing facility, our most advanced research programs in the analysis of DNA sequence information are already nearing the limitations of the existing computational equipment. The establishment of a strong informatics component with a DNA sequencing facility, integrating existing programs of quantitative and molecular genetics should lead to important new information and technology. This is a joint proposal by 47 investigators from 20 Departments and five Colleges of NCSU. These investigators represent a broad spectrum of scientific knowledge, skills and experience and who all share a need for a local high-throughput DNA sequencing facility with advanced computational capability. $184,000 has been awarded by the North Carolina Biotechnology Center toward the establishment of this facility. The U niversity has made a commitment for space, salary for a Lab Manager, and support facilities to maintain the sequencing center. $162,622 is requested from NSF for computing equipment. The total cost to establish the facility in year 1 is $621, 211. The amount requested from NSF is 26% of the total cost.